RUI: Long-Term Studies of Variable Stars

9315061 Wolf The knowledge of many basic stellar properties is dependent on studies of variable stars. Two classes of variable stars, eclipsing binaries and yellow supergiants will be studied in this project. Photometry measurements will be made with CCD on the Baker Observatory 0.4 meter telescope at Southwestern Missouri State University. Light curves will be obtained for poorly studied eclipsing binaries and eclipses sought in suspected eclipsing binaries. Many yellow supergiants may vary at low levels and a sample of these stars will be observed to search for such variations.